Infrastructure for an Interdisciplinary Laser Laboratory

9413901 Cates An interdisciplinary laser laboratory will be established at Princeton University. This will supply much-needed equipment to a number of excellent research projects in atomic physics, nuclear and particle physics, and biophysics. ***